U.S.-Hungary Mathematics Research on Iteration Theories

The primary objective of this U.S.-Hungary mathematics research project between Dr. Stephen BLoom of the Stevens Institute of Technology and Dr. Zoltan Esik of the Bolyai Institute, Szeged, is to study special classes of iteration theories that pertain to three areas: algebraic automata theory, program correctness and sematics of concurrent processes. In particular efforts will address matrix and matricial iteration theories and the theory of synchronization trees. These efforts should yield new knowledge of equational properties of formal power series and a new treatment of total correctness. Collectively the results are expected to help unify a body of work in theoretical computer science, expressed inside a framework of iteration theories. This project in computational theory fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and share research resources in areas of strong mutual interests and competence.